Reactivity of B-X Bonds with Transition Metal Complexes: Chemistry Relevant to Functionalization of Organic Substrates

This research focuses on organometallic chemistry involving boron. Previous efforts have established patterns of reactivity of a number of boronic species with various transition metal complexes. Mechanistic studies have probed the mechanism of B-H elimination in group 5 metallocene systems. A catalytic 1,2-diborylation reaction of olefins has been developed which is attractive for olefin functionalization. The proposed work will develop these and similar themes in three areas: catalytic hydroboration using early transition metals, further development of olefin boration reactions, and reactions of 1,2-diboration products. These studies may lead to applications in polymer chemistry in areas such as polymer initiation and functionalization.

With this award, the Organic and Macromolecular Chemistry Program continues support for the research of Dr. Milton R. Smith of the Department of Chemistry at Michigan State University. Professor Smith is especially interested in the chemical interactions of organic molecules containing transition metals with molecules containing a boron atom. These studies are fundamental in nature, but may find applications in the area of polymer chemistry.